An Accomplishment-Based Renewal for Support for Measurement and Analysis of High Latitude Magnetic Pulsations

This product will continue the operation and analysis of data from magnetic pulsation sensors located at high geomagnetic latitude stations in the Arctic and Antarctic. The stations are McMurdo and South Pole, Antarctica and Sondre Stromfjord, Greenland. The frequency of pulsations measured are from a few milliHertz to a few Hertz. These pulsations play an important role in attempting to understand the mechanism by which energy is transferred from the solar wind to the Earth's magnetosphere. The ground based measurements are used in conjunction with similar data acquired from a number of satellites.